Mathematical Sciences: Methods in Module Theory; May 29- June 1, 1991, Colorado Springs, CO

During the past decade, a host of new techniques and methods have been developed to answer a variety of module-theoretic questions. Such methods include homological, categorical, finite dimensional, set-theoretic, integral representation, and geometric techniques. The power of these tools has not yet been fully realized, due partly to the diversity of topics encompassed by the phrase "module theory", and partly to the lack of a forum in which the pioneers of these techniques can explain the power of their methods to others. This grant will partially support a conference on Methods in Module Theory to be held at the University of Colorado at Colorado Springs, May 29 - June 1, 1991, which will provide the necessary forum. The cross-fertilization philosophy of the conference, together with the expository nature of the principal lectures, makes this conference an appropriate setting for graduate students and recent Ph.D.s, as well as the more experienced researchers.